High Spectral Resolution Lidar for Atmospheric Sodium and Density Profiling

This project is to implement a high spectral resolution fluorescence lidar system capable of simultaneous measurement of the sodium density and temperature in the upper mesopause and lower thermosphere. This will be a unique system that leads to an easily operated stable system and will become the only Lidar system in the US capable of such temperature measurements and only the second such system in the world. The system is planned to be used to investigate the structure and dynamics of the mesopause region.